Assembly and Stability of Microtubules from Antarctic Fish at Low Temperatures

The long-range goals of the proposed research are to determine, at the molecular level, the structural adaptations that enable the tubulins of Antarctic fishes to polymerize at the low body temperatures of -2 to +2 C experienced by these cold-adapted vertebrates, and to examine the dynamics of the fish microtubule. The specific objectives of this project are four in number: 1) to clone and to sequence DNAs complementary to messenger RNAs (cDNAs) that encode the alpha and beta tubulins of an Antarctic fish; 2) to determine the structure and number of the tubulin genes within the genome of an Antarctic fish; 3) to determine the organization and functions of the structural domains of tubulins from Antarctic fishes; and 4) to characterize the dynamic behaviors of Antarctic fish microtubule at low temperatures. Experiments will be performed on tubulin cDNAs and genes derived from the nucleic acids of Notothenia coriiceps neglecta and on microtubule proteins purified from three Antarctic fish species: N. coriiceps neglecta, N. gibberifrons, and Chaenocephalus aceratus. The nucleotide sequences of the alpha and beta tubulin cDNAs and genes from N. coriiceps neglecta will be established by standard methods. The structural domains of tubulins that are necessary for the assembly of cold-stable microtubule will be defined by limited proteolytic digestion of the proteins followed by microtubule assembly assays. Finally, the dynamics of Antarctic fish microtubule at low temperatures will be examined by electron-microscopic and video-enhanced light- microscopic methods. Comparison of the primary sequences and structural domains of tubulins from Antarctic fishes with those of tubulins from temperate and warm-blooded vertebrates should reveal the structural features necessary for microtubule assembly at low temperatures. This work will also provide, for the first time, valuable information concerning the structure of tubulin genes from an extreme Antarctic poikilotherms.